MR Imaging of Neuronal Pathways in Vivo.

Information is carried through the brain by bundles of nerve fibers called tracts. One of the well-known tracts is that from the retina of the eye to a region of the midbrain called the optic tectum. Neuroanatomists traditionally trace the connections of these tracts, from the cell groups of their origin to their specific target nerve cells, by using special dyes. The tracing requires cutting the brain into thin sections, to examine the cells microscopically, and reconstruct the three-dimensional pathway from the series of sections. In contrast, this study will explore a new method, called magnetic resonance imaging (MRI), to trace such pathways. The basic technique is already used in clinics as a "non-invasive" way of revealing soft brain internal structures from human patients, using a computer to reconstruct the 3-dimensional images from the machine. This study tests whether magnetic material can be molecularly bound to be taken up like other tracers by particular pathways in small animal brains, and whether the resolution of small features in the brain can be achieved satisfactorily. Then the animal can be examined with an appropriately scaled MRI machine, and the computerized reconstruction of the pathway made, without sacrificing the animal at all. If successful, this pilot study will have great impact on neuroscience by introducing a fundamentally new way of doing neuroanatomy on animals where the physiology is known, and will introduce the possibility of repeated neuroanatomical study on the same individual by this non-invasive technique.